U.S.-Italy Cooperative Workshop on the Theoretical and Computational Aspects of the Hilbert Function

9214121 Sturmfels This award will support a joint U.S.-Italian workshop on the theoretical and computational aspects of Hilbert functions, organized by Bernd Sturmfels, Cornell University, and Lorenzo Robbiano, University of Genoa, Italy. The objective of this binational workshop will be to advance this subject area through discussion and comparison of the different aspects of Hilbert functions by a small number of selected participants. There will be 25 workshop participants, ten of which will be Italians, as well as ten graduate students and postdoctorate fellows from Cornell and other U.S. institutions. Important open problems in the theory of Hilbert functions will be addressed, including the structure of zero-dimensional schemes, algorithms for computing Hilbert functions and finite free resolutions, Hilbert functions of algebras with special structural properties, and combinatorial methods and polyhedral invariants of projective varieties. The participants' papers will be published in a well-established monograph series. ***